HPLC/Electrospray Triple Quadrupole Mass Spectrometer

We are requesting funds for the purchase of a high-performance liquid chromatography/electrospray triple quadrupole mass spectrometer. Acquisition of this state-of-the-art instrumentation is essential for biological research at the University of North Carolina at Chapel Hill. The major user group is comprised of Dr. Glish, Associate Professor, Department of Chemistry; Dr. Charles, Research Associate Professor, Department of Environmental Sciences and Engineering; Dr. Swenberg, Professor, Department of Environmental Sciences and Engineering; Dr. Zeisel, Chair and Professor, Department of Nutrition; Dr. Frelinger, Professor, Department of Microbiology and Dr. Smith, Assistant Professor, School of Pharmacy. The instrument will be used by Dr. Swenberg to investigate the formation and repair of DNA modifications from exogenous exposure to chemicals and endogenous processes. This research requires advances in analytical chemistry to detect low femtomolar quantities of DNA adducts. For this reason, Dr. Charles is investigating electrospray mass spectrometry methods for the analysis of DNA adducts. She is also using electrospray to identify intermediates of biological oxidation reactions. Dr. Zeisel requires electrospray for quantitiation of metabolites of choline and for identifying phosphatidylcholines to characterize the transport, biosynthesis and metabolism of cholne in mammary epithelial cells. Dr. Smith wants to quantitate known, exogenously administered peptides in biological fluids to understand the metabolism and disposition of peptides. Dr. Frelinger will use the instrument for molecular weight and structural determination of peptides and proteins. Dr. Glish intends to investigate the electrospray and collision-induced-dissociation of proteins and peptides. The instrument will also be available for use by other researchers on campus pursuing research in the biological sciences, including those identified in the proposal as minor users. The mass spectrometer w ill be housed in the Mass Spectrometry Facility at the University of North Carolina, located in rooms 153-156 Rosenau Hall. The long-term objectives of the Facility are to teach students and support research. The specific aims are to perform research which develops solutions to analytical problems in the biological sciences; to promote the use of mass spectrometer by active interactions with students and faculty conducting biological research; and to provide instruction in mass spectrometry by discussions and hands-on experience.